Theoretical Advanced Study Institute in Particle Physics

The Theoretical Advanced Study Institute for high energy physics graduate study will be held for four weeks each year in June/July at the University of Colorado, Boulder during the period 1998-2002. The Institute will focus on one or two broad topics of theoretical elementary particle physics every summer, the topics chosen being timely both from the experimental and theoretical point of view. (The title for the 1998 TASI is `Neutrinos in Physics and Astrophysics: from 10-33 to 10+17 cm`. The topics covered will include aspects of neutrino properties in particle and astroparticle physics.) The annual program consists of eight to ten lecture series, and several seminars on topics of current interest. Each lecture series consists of five to six lectures, each of 75 minutes, all allowing for questions from students. Each lecture series starts with introductory material and ends with the current status. This summer program of graduate study is extremely important to the education of our future elementary particle physicists. It complements in a very constructive way what graduate students learn on their home campuses.